The mathematics and mechanics of elastic growth; with biological and biomedical applications

Goriely
DMS-0907773

The theme of the project is the study of growth, structure,
and function in physiological and biological systems through the
use and development of exact elasticity theory and the associated
methods of applied mathematics. The project divides into
specific but interconnected lines: the mathematical development
of a theory of elastic growth in soft materials; the long-time
dynamics of growth; the linear and nonlinear stability analysis
of growing elastic systems with application to morphogenesis and
pattern formation; the problem of cavitation and void-opening in
growth; and the study of reduced theories. The Principal
Investigators study elastic growth within the framework of exact
elasticity theory, where growth is modeled through the
multiplicative decomposition of the deformation gradient. The
mechanical consequences of growth, its long-time dynamics, and
its potential to either generate instabilities through changes in
geometry and stresses, or to act as a regulatory mechanism, are
examined. Furthermore, a study of growing tissues is carried out
through the development and application of the techniques of
weakly nonlinear analysis. The development of reduced theories
for rods, membranes, plates, and shells for growing structures is
also undertaken. Various applications in biology and physiology
are studied; in particular the ideas of growth are applied to
bacterial and fungal systems, stems, leaves, arteries, and blood
vessels. The various theoretical analyses and specific models of
growth are carried out through the use and extension of nonlinear
analysis techniques developed by the Principal Investigators.

Growth is a fundamental scientific problem of great
complexity coupling biological, chemical, and physical phenomena.
The goal of the project is to develop mathematical tools to
understand and model a variety of problems related to growth,
including plant and microbial morphogenesis, the stability of
arteries, the development of aneurysms, and the regular and
abnormal functions of organs such as the heart, the esophagus,
and the trachea. Despite the great biological diversity of these
systems, they share common features that can be modeled through
the use of similar mathematical tools. These models help the
scientific community to understand the intimate coupling between
mechanics and biology in growth processes and to predict better
the response of many biological and physiological systems.